Engineer It! Dissemination of a Successful Multiple Outcome Exhibition

9803989 Dabrowski The Oregon Museum of Science and Industry (OMSI) will develop Engineer It! Dissemination of a Successful Multiple Outcome Exhibition. This will be a 5000 sq. ft. traveling exhibit based on their NSF supported exhibit Engineer It! that opened as a permanent exhibit at OMSI in 1994. The exhibit presents visitors with an environment rich in opportunities to design, engineer, and test structures in three testing areas focusing on water, structures, and wind. Visitors will learn basic engineering principles through experimentation by designing boats, buildings, bridges, cranes, windmills, and paper airplanes among other things. Supporting components include training workshops for host museums on how to most effectively use the experimental environment of the exhibit, a Teacher's Guide, take-home activities, and a web page. The primary audience is the general museum visitor which includes many families, and elementary school students. Careful attention will be given to the development of family friendly exhibit text that will help adults understand how children learn from developmentally appropriate hands-on activities and how they can support that learning through adult-child interaction. The content of the exhibit is in synchrony with national science standards.